The University of Vermont vBNS Connection

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection to the vBNS. Applications involve biomedical optical tomography, multicast networks, parallelizing algorithms to biomedical optical tomography, multicast networks, parallelizing algorithms to estimate network performance, remote observations in Radio Astronomy; simulation of particle systems, protein sequence and structural diversity, and diagnostic telepathology. Collaborating institutions include San Diego Supercomputer Center, University of Massachusetts, Purdue University, Johns Hopkins University, Dartmouth College, University of Maine, University of Pittsburgh, University of New Hampshire, National Laboratories at Argonne and Livermore.